Neuronal Control of Astroglial Cell Proliferation

WPCO 2 B V P Z CG Times 12pt 8 p C < , W X p P rk ; X P HP DeskJet 500 HPDES500.PRS X p P rk ; x X , , 0 FX P " m o 8 ; ^<D\dd DDDd DDDDddddddddddDD X | |x DL | t l| DDDddDXdXdXDdd88d8 ddddHL8dd ddXXdXd d ddDDddd D d d d X X X X X X|X|X|X|XD8D8D8D8 d d d d d d d d d d X d d d d dtd X X X X X X X d|X|X|X|X d d d d d d d dD D D8D L d|8|8|8|8|8 d t d d d d H H HlLlLlLlL|8|8|8 d d d d d d d X X X d|8 d HlL|8 d d d d d D/ N d ddDXPPdd ddd dHdddd H d x H d h 1D DD x dp d x d x X L p x xdx X x x xL xxxxxxxxxxxxxxxxxxxLLLLLLL x 2 = M #| p Brennan Cells of the adult central nervous system (CNS) have a very limited ability to compensate for injury and cell death in the brain. This is due in part to the lack of growth and division of the major cell type of the brain; neurons. This prevents restoration of normal brain function following injury to neruons during strokes, unconsciousness and many neurodegenerative diseases. The reason for the inability of neurons to divide is unknown, but may involve an abnormal growth of another cell type, astroglia, in response to injury. Importantly, when astroglial cells multiply, they form a dense, scar-like area in the injured brain. It is thought that this multiplication of astroglial cells effectively blocks regrowth of neurons and prevents the reestablishment of neuron connections called synapses. Dr. Brennan will investigate why under certain circumstances astroglia cells are capable of cell division an d how this might be switched off, thus preventing the glial scar formation seen in neural injuries. The long-term goal of this research is to understand the factors which regulate cell growth and division in the CNS so that the treatment of neural injury and degenerative diseases of the nervous system may begin. ***